Anatomical Basis for Modulation of Somatosensory Processing in the Rat Thalamus

Neural impulses carrying somatosensory information to the brain arise from many sources. Several of the pathways carrying such information include the ventrobasal nucleus as the last relay station before reaching the cerebral cortex. For this reason, the ventrobasal nucleus is a candidate as a somatosensory modulator. The ability to modulate the flow of somatosensory information has long been believed to be an important component of such phenomena as selective attention and arousal. This project will be a study of the anatomy of the major modulatory inputs to the ventrobasal nucleus: an excitatory input from the part of the cerebral cortex devoted to the somatosensory system, an inhibitory influence from the thalamic reticular nucleus and several inputs from the reticular formation of the brainstem. The studies are being done on brains from rats because the neuronal circuitry of the rat ventrobasal nucleus is relatively simple for a mammal. The procedures will include injecting tracers into the somatosensory cortex and the three areas of the brainstem reticular formation. These tracers will be transported into corticothalamic and brainstem nerves, allowing the pathways to be visualized on microscopic examination. Tracers will also be injected directly into thalamic reticular neurons, allowing them to be seen over their entire extent. Thus, the terminations and synaptic connections of nerves in the ventrobasal nucleus will be traced for the first time. This information will provide important leads for future functional studies of the role of the ventrobasal nucleus in modulating the flow of somatosensory information to the cortex.